Holomorphic Dynamics, Small Divisors and Related Topics

Proposal Number: DMS-0202494
PI: Ricardo Perez-Marco

ABSTRACT

Research will be conducted on several projects on the theory
of Dynamical Systems, and more specifically, in Holomorphic
Dynamics and Small Divisor theory. Using heuristic ideas from
Holomorphic Dynamics it is proposed to investigate an effective
selection of polynomials as iterators in Pollard rho method of
factorization. Factorization algorithms are a central topic
in Cryptography. Numerical explorations show that there is
room for improvement in this field. In Holomorphic Dynamics
and Small Divisors, it is proposed to extend the general
theory of dynamics on Hedgehogs. The focus of the proposed
research is on weak forms of stability when arithmetic
conditions, typical of Small Divisors, fail. It is proposed to
investigate Siegel disks and their boundary, and to attack
the hard problem of classifying invariant annular continua.
It is anticipated that the techniques of tube-log Riemann
surfaces should play an important role. Another project
consists in extending geometric techniques to higher
dimensional Small Divisors problems. In particular, a new
geometric construction of invariant tori is envisioned. In
the theory of Renormalization in Holomorphic Dynamics it
is proposed to develop the new theory of renormalization.
This involves a better understanding of Degenerate
Quasi-Conformal theory (i.e. for non bounded Beltrami
coefficients). A last topic in Complex Analysis on which
research is proposed is the theory of Borel Monogenic
functions. We project to develop a theory that is flexible
enough to apply to problems in Small Divisors.

Dynamical Systems is a branch of Mathematics with ancient
roots linked to Celestial Mechanics. It was founded as a
distinct branch of Mathematics more than a century ago by
H. Poincare. It is a rich field with multiple interactions
with other parts of Mathematics and Science. The main goal
is the study of the long time behavior of evolution processes.
Some of the most important problems come from fields as
Biology, Physical Sciences and Chemistry. One of the central
questions is the Problem of Stability. For example, is the
Solar System stable according to Newton laws ? K.A.M. theory
(also called Small Divisor theory) is one of the major
branches in Dynamical Systems. It was founded in the second
half of the XXth century and had an important impact in
Dynamical Systems and related fields. It is the very first
theory that provides stability results in non-linear
conservative problems. It continues its expansion to fields
as diverse as Partial Differential Equations, the theory
of foliations, Holomorphic Dynamics, etc. In the proposed
projects some of the most difficult open questions in KAM
theory will be explored. What happens when stability fails?
Can we still recover some traces of stability that may be
useful in the applications?